Workshop on Integration of Design Disciplines in Information Systems

This workshop integrates the design disciplines into the development of easy to use electronic systems and the assessment of the critical nature of their perceptual quality, intuitive user relationships, and overall impact and value. The multidisciplinary workshop team, including researchers and practitioners from design, engineering, computer science, education, library science, the social and behavioral sciences, and fine art, consider the design and development of the interfaces, tools, services, and overall systems necessary for success. The goals are a framework for understanding the creation and cultivation of the Schools of Design for the Information Age, with Ph.D. level research agendas (such as Crticial Theory, Evaluation and Measurement Theory, Semantics, and Design Methods), and initial plans for such schools.